Research Initiation: Automatic Design of Machining Fixturesfor Automatic Process Planning

Because fixtures are special tools in the sense that each is generally used for making one type of parts, the time and cost of fixturing for small-batch production are excessive on a per-part basis. A critical need is shown to exist for automating the design of machining fixtures in the context of automatic process planning for small-batch production. This project is directed towards the development of an integrated methodology for the following fixturing decisions: conceptual design, the number of fixtures needed, workpiece orientation in each fixture, fixturing points and clamping forces. The methodology will be based upon engineering mechanics and sound principles used in fixturing practice. The former is used to ensure proper design and the latter is used as high level guidance for fixture synthesis. In addition, the reasoning of part geometry is addressed, which provides a basis for the integration of process planning and fixture design. A prototype system will be developed using knowledge system tools.